US-Netherlands Workshop: Frontiers in Transportation: Social and Spatial Interactions, Amsterdam, The Netherlands, September 2006

This eighteen-month award allows the PI, to support a "US-Netherlands Workshop: Frontiers in Transportation, Social and Spatial Interactions in Amsterdam, The Netherlands, September 2006." The workshop is expected to identify common research priorities and collaborative research proposals in the area of social and spatial interactions with applications to transportation and land use.

Modeling efforts that tie social-behavioral decisions with traffic patterns and demands are in their infancy. The workshop will bring both international perspectives and interdisciplinary methods to the task of adjusting current decision-making needs to reflect impacts based on social and spatial networks.

The development of a new paradigm in how behavioral decisions are modeled in transportation and land use will lead to better understanding of development of cities and greater insight into policy decisions affecting land use development, traffic congestion, and non-auto oriented modes of transport. It will have a wide impact on transportation policies and planning.